Superconducting Anisotropy in High-Tc Materials

The proposed research builds on an ongoing collaborative effort between Case Western Reserve (experiment) and Iowa State University (theory). Their collaboration has recently established that an anisotropic superconductor experiences an intrinsic torque when placed in a magnetic field. This new phenomenon arises from a transverse vortex lattice magnetization and is a direct result of superconducting anisotropy. The immediate technical objectives of the work are: 1) To refine and extend the existing phenomenological theory so as to deepen their understanding of both its range of validity and its applicability to the actual torque experiments. 2) To refine their torque experiments and then extend them across the whole family of high- Tc materials, so as to obtain detailed and systematic information on the variation of superconducting anisotropy. The overall goal of their effort is to provide some useful guidance for the development of microscopic high-Tc theory, in the form of reliable superconducting anisotropy values across the whole family of materials.